Study of Analog Microelectronics for Ring Imaging Detectors

9515021 Artuso This Career Advancement Award supports a program to design and produce read out electronics for a particle- physics detector. The devices developed will be used in the CLEO detector in a research program to study the properties of B mesons. The P.I. will enhance her competence in microelectronics techniques to improve her ability to make important contributions in future experiments. ***